NSF Young Investigator

Finding new and creative ways to educate engineering and science students forms the focus of the proposed research. Efforts will be directed to determine how current techniques of artifical intelligence, computer visualization, and engineering pedagogy can be combined or enhanced stimulating students to excel in their studies while retaining quality education.